1986 Gordon Research Conference on Environmental Sciences: Water - June 16-20, 1986

Support is provided for the conduct of a Gordon Research Conference on chemical reaction pathways between substances present in natural waters that are affected or impacted by the presence, growth, and metabolism of microorganisms. The diffusion, dispersion, and interactions of pollutants in both surface and groundwaters are partially determined by the presence and activities of microorganisms which in turn affect the quality of the water. The Conference will be held at the New Hampton School, New Hampton, New Hampshire from June 16-20, 1986.